Logic-Based Geometric Spatial Reasoning

The objective of the proposed research is to define a theoretical framework for logic-based geometric spatial reasoning and to develop models to support the framework. A theoretical framework will formalize the relation and will find use in several applications such as the integration of computer-aided design and manufacturing, automatic interpretation of non-invasive solid scanning technologies, and three-dimensional pattern recognition. The approach for the proposed research will involve the consideration of extant solid modelling paradigms and their geometric entities, the description and modelling of these entities in logical form, the development of the theoretical framework and supporting proofs and example models. The logic-based geometric spatial reasoning in hardwood log processing will be used as a primary illustration, though other applications will also be considered.